CDI-Type I: CiiWork: an interactive workbench for integration, exploration, and analysis of chronological information

Chronological datasets that span large periods of time are the focus
of study in several diverse disciplines: climatology, geology,
biology, history, and anthropology, to name just a few. While these
datasets share strong links to time scales, they exhibit a great
diversity in most other aspects. For example, some datasets are
derived from ice cores, while others arise from archaeological
artifacts, instrumental records, and numerical modeling. In each
discipline, researchers have spent considerable effort to carefully
developing a time scale for each such dataset, and to interpreting the
resulting temporal data, in turn leading to scientific insights. Such
chronological datasets are growing rapidly in both size and diversity,
due to not only increasing activity by scientists worldwide but also
improving technology. The integration and analysis of this large and
diverse collection of datasets promises to yield significant
scientific breakthroughs. However, such integration and analysis
currently requires a very significant human effort, which severely
restricts our ability to realize its potential value. Most of the
analysis techniques developed in the past do not scale up to the size
and diversity of data we must now analyze. The goal of this project is
to break this barrier to scientific breakthroughs by developing
methods to solve the problems arising from the diversity and volume of
data, and to implement, test, and apply these methods in an
interactive workbench.

Developing the above workbench requires work in multiple
cyberinfrastructure research topics, which by themselves have received
considerable research attention. By their nature, however, these
topics do not admit many universal solutions and there is currently a
large gap separating the generalized results available in the
informatics literature and their realization in operational systems
that are ready for use by domain scientists. Our effort will focus on
bridging this gap by adapting and specializing known methods, and
developing new ones when needed, to the characteristics of the
chronological data of interest. This work is not limited to the task
of implementing cyberinfrastructure for the described domains based on
known methods. Rather, the work requires research effort to map
concepts and techniques from computer science to various scientific
domains, and vice versa, carefully adapting prior results and
developing new ones. This work requires not only expertise on both the
cyberinfrastructure and domain sciences sides of the gap, but also a
close- knit collaboration that can overcome traditional inter-domain
barriers.

By enabling effective use of the large and diverse collection of
chronological data, our workbench opens the door to scientific
breakthroughs in multiple disciplines. As just one specific example,
our workbench will improve our understanding of one of the most
important scientific and societal problems: the operation of the
global climate system, past, present, and future. In addition to
enhancing the effectiveness of the scientists specializing in each
discipline, our work will allow researchers from other disciplines,
and people with a more casual interest, to easily access and,
importantly, process and interpret the same data from which key
research results and forecasts emerge. This aspect is particularly
important as it demystifies the related research that may otherwise
appear arbitrary or opinionated. Shared examples will be traceable by
others all the way back to raw data. Our results will be disseminated
not only through the traditional professional channels but also
through outreach to the broader community.